Idaho State University Scholarship For Service 2008 Project

Computer Science (31)

This project provides scholarships for graduate students seeking degrees in an MBA program with an emphasis on Information Assurance (IA). This degree gives students a strong background in business and policy as well as education and technical training in IA. Students in this program are engaged in a variety of research projects focused on the broad theme of organizational information asset protection, and they interact with experts in the field of IA through a series of professional seminars. Upon graduation, scholarship recipients must work for a Federal government agency in an IA position. The scholarship program helps to address the nation's need for qualified information technology professionals working in government agencies.